NSF/Alfred P. Sloan Foundation Postdoctoral Research Fellowship in Molecular Evolution for FY 1997

Abstract DBI 9750042 Melissa A. Fleming This action funds an NSF/Alfred P. Sloan Postdoctoral Research Fellowship in Molecular Evolution for 1997. These fellowships support studies involving the theoretical, comparative, computational, and/or experimental analyses of biological patterns and processes at the molecular level within the framework of organismic evolutionary change and adaptation. These studies also include the use of molecular data to address broader evolutionary questions. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Evolutionary history and distribution of ermine and mink subspecies in southeast Alaska." Glaciation and sea level changes have repeatedly fragmented the landscape of southeast Alaska and coastal British Columbia. This has generated high levels of paleo- and neoendemism. This research uses mitochrondrial and nuclear DNA analyses to investigate the phylogeography of two mammalian species with island endemics in the region that are of potential conservation concern: mink and ermine.